Practical, Iterative, Synthetic Methodology from Novel Reactive Intermediates

The focus of this research is the investigation of the chemistry of homo-allylic type carbonium ions as precursors to vinylcyclopropanes, alkenylidene cyclopropanes and oligcyclopropanes. An iterative application of the methodology will be used to prepare biologically active natural products such as FR-900848 and U-106305, both of which contain oligocyclopropane structural units. Extensions of the methodology to solid phase synthesis and combinatorial library generation will also be carried out. The focus of the educational activities will be the development of laboratory experiments involving combinatorial chemistry. With this Faculty Early Development (CAREER) award, the Organic and Macromolecular Chemistry Program is supporting the research and educational activities of Dr. Richard E. Taylor of the Department of Chemistry at the University of Notre Dame. Professor Taylor will focus his research efforts on developing methods for the synthesis of cyclopropane containing structural units. The methodology, applied in an iterative fashion, will give access to structurally novel oligocyclopropanes. This class of compounds has been shown to have interesting biological properties. In addition, application of the chemistry to solid-phase synthesis and combinatorial library generation of diversely functionalized oligocyclopropane structural units will be investigated. The educational activities will center around the introduction of combinatorial chemistry into undergraduate courses